Basin Analysis of Albian through Eocene Fore-arc Strata of the Vizcaino Terrane: Compilation of a 1:50,000 Lithofacies Map

9406689 Smith PI and an interdisciplinary team, including Mexican collaborator Miguel Tellez (UNAM-BC), will integrate old and new sedimentologic and biostratigraphic studies to produce a comprehensive geologic map of the Vizcaino fore-arc basin. Compiled data, including strain analyses, will be used to interpret basin history and tectonic evolution of the southwestern North American plate edge. Paleo-magnetic evidence for long-distance translation will be evaluated. Combined with prior studies, this work will provide a broad evaluation of this plate margin for the last 100 million years.